Harmony: The Art of Reconciliation

0429836
Harmony: The Art of Reconciliation
Benjamin C. Pierce

This project aims to build a generic tool for reconciling disconnected
updates to heterogeneous, structured, replicated data -- usable, for
instance, to synchronize bookmark files from different web browsers
running on multiple machines.

A central theme is bringing ideas from programming languages to bear on
problems more commonly regarded as belonging to the purview of databases
or distributed systems. In particular, a major focus concerns
developing the foundations of "bi-directional programming languages," in
which every program denotes a pair of functions -- one for extracting a
view of some complex data structure, and another for putting back an
updated view into the original structure. Similarly, the issue of
alignment of information during reconciliation will be addressed by
focusing on the type structure of the data being reconciled. This
linguistic perspective may offer new insights into classical problems in
these areas, such as the well known "view update problem" in databases.
At the same time, reconciling complex abstract formats, such as ordered
lists and trees, brings to fore a number of algorithmic issues
concerning how to meaningfully weave together disconnected changes in
replicas.